Collaborative Research: Large-Scale Optimization: Matrix-free Algorithms, Data Parallelism, and Applications in Seismic Inversion

In this collaborative interdisciplinary project, the
investigators Mark Gockenbach, Anthony Kearsley, and William
Symes develop and implement algorithms for large-scale
optimization problems that arise in a variety of applications,
focusing on techniques particularly suited to parallel
architectures, and apply the methods to the seismic velocity
estimation problem. Large-scale optimization problems often
present difficulties to standard algorithms and software. Many
of these difficulties arise in the seismic velocity estimation
problem. First, the sheer data volume makes it impractical to
explicitly form and factor matrices, as required by many standard
optimization algorithms. To address this, a new matrix-free
Sequential Quadratic Programming (SQP) algorithm is developed,
based on recent advances in matrix-free algorithms for the
so-called trust region subproblem. Second, the data structures
and interfaces required for seismic data processing are not
easily adapted to those required by "off-the-shelf" optimization
software. The Hilbert Class Library (HCL), an object-oriented
optimization package, can solve optimization problems involving
data structures and interfaces of arbitrary complexity. The SQP
algorithm, along with the necessary seismic data structures and
simulators, is implemented in HCL. Third, large-scale
simulations often require the use of parallel computation. The
use of parallelism in simulation and optimization is addressed
through the development of HCL classes that automatically
distribute data over a network of distributed workstations. The
above innovations in optimization methods and software are used
to study in detail a new formulation of the seismic inverse
problem. The investigators have recently introduced this
formulation in order to overcome certain optimization-theoretic
difficulties inherent in standard formulations.
Optimization problems arise in science and engineering,
where one often wishes to find the best design, the best
mathematical model, the best strategy, and so forth. Large-scale
optimization problems, which involve many variables, present
special challenges, including the choice of algorithm, the
representation of data, and the interface between optimization
software and programs written by the application scientist. This
project addresses these challenges in the context of an important
application, seismic exploration. The investigator and his
colleagues develop new optimization algorithms to identify
geological features of the subsurface of the earth. Included is
a general method for solving large-scale optimization problems;
this algorithm is applicable to other science and engineering
problems. Moreover, they also develop an innovative software
package, called the Hilbert Class Library (HCL), that allows
optimization algorithms to be used with problems of arbitrary
complexity; the software adapts to different data structures and
software interfaces. Finally, they extend HCL to automatically
take advantage of parallel computers, making it easier to take
advantage of high performance hardware. The seismic exploration
problem is important to the petroleum industry; a precise
knowledge of geological structures is essential for efficient
utilization of petroleum reserves. In addition, the HCL software
addresses the important issue of technology transfer as it
pertains to numerical algorithms; too often algorithmic advances
are unavailable to application scientists because optimization
software and application software have incompatible interfaces.